BRIGE - Liquid-phase nanotechnology: Dispersion, rheology, and applications of pristine graphene

1032330
Green

Single-layer graphite, known as graphene, has taken center-stage as a revolutionary new nanomaterial in recent years due to its excellent mechanical, thermal, and electrical properties, including the capability for several unusual quantum effects. Graphene shows great promise as the basis for novel multifunctional materials, including field effect transistors, flexible electronics, transparent thin films, nanocomposite fillers, and structural carbon fiber. Many of these materials and devices require scalable, liquid-phase processing. However, development of such materials has been hampered by fundamental scientific challenges associated with each processing step (1) Difficult dispersion due to poor exfoliation and rapid re-aggregation of graphene sheets, (2) poor interfacial adhesion between filler and matrix, (3) poor understanding of bulk processing, particularly in regard to graphene rheology and microstructure. Prior studies have utilized chemically modified graphene with properties far inferior to pristine graphene. The goal of this program is to overcome these processing challenges for pristine graphene-based materials. We generate pristine graphene sheets encapsulated in a polymer nano-coating through localized polymerization on the graphene surface, as demonstrated through successful preliminary proof-of-principle experiments. This technique results in stabilization against aggregation and will be demonstrated by effective incorporation into polymer nanocomposites. We also create innovative studies in the novel field of graphene rheology in order to enable controlled graphene processing. We compare experimental rheometric results against simulations of the microstructure-rheology model for discotic solutions. Preliminary simulation results show promising results for modeling alignment dynamics.
Intellectual merit: This transformative engineering plan meets three critical scientific challenges in the graphene community. Novel interfacial polymerization techniques are generated for (1) the production of re-dispersible, pristine graphene, which has never been attained before. Furthermore, polymer coating allows (2) the precise engineering of the interface between graphene and the polymer matrix in nanocomposites to increase interfacial strength. This approach is groundbreaking because it avoids the degraded properties associated with the commonly-used graphite oxide processing route. This program also pioneers the novel field of (3) graphene rheology and correlates rheological properties with graphene alignment and dispersion quality through a combination of experimental and computational studies.
Broader impacts: Although this program focuses on the fundamentals of graphene dispersion, interfacial chemistry, and rheology, these findings have immediate application to the wide range of graphene-based materials and devices in need of bulk liquid-phase processing, including electronic devices, composites, and films. Thus, this interdisciplinary program combines fundamental scientific research with practical engineering applications. The findings will be disseminated on the broad scale through presentations and publications and on the local scale through the PI's functional materials course.
Broadening Participation: The program seeks to integrate research and education by engaging undergraduate researchers and a high-school teacher with a central role in problem design and visualization for the simulation aspects of the work. In concert with these research efforts, the PI and the high school teacher will partner with the TTU T-STEM Center to create, evaluate, field-test, and disseminate nanotechnology curriculum for use in STEM education for grades 9-12. The curriculum uses both scientific and ethical challenges in nanotechnology as a platform for student-driven research projects and debates. This curriculum will emphasize student inquiry and active learning in order to provide deeper investigation and learning and generate increased interest in STEM fields among underrepresented groups. This curriculum creates new motivation and enthusiasm in STEM fields by emphasizing the potential for nanotechnology to be used for environmental responsibility and social justice (e.g., oil spill clean-up, water purification in developing countries); such topics are often neglected in STEM education and will engage a broader spectrum of student backgrounds.